Taking Foundation Science to Scale--Digitally: Transforming a Print Curriculum into an Innovative Learning Tool for Commercial Distribution

The print version of Foundation Science, a comprehensive high school science curriculum, has been extensively field tested and shown to be effective in increasing student learning and changing teacher practice. Carolina Biological Supply is scheduled to publish a digital version of Biology and Chemistry portions of Foundation Science that goes well beyond the conversion of print text to digital delivery by September 2012. Many digital enhancements have been developed and tested in the biology unit of Foundation Science, which was used as a model to develop a system to incorporate Universal Design for learning features in materials development and in on-line professional development for cross-over teachers. Some of the digital resources include a digital book reader; a notebook in which notes can take various forms such as text, drawing, voice recording; separate unscored assessments; an interactive glossary; graphing capabilities and an online research tool.

Thus this project provides a model of how existing, tested digital enhancements can increase student learning. Increasing the quality of science education requires careful coupling of effective, research-based curricula with innovative digital features that deepen and enhance science learning and teaching. This RAPID is to ensure that the content and pedagogical expertise is present during the development of the digital version of Foundation science.